Doka Hóg Wahoo (Where do we come from): STEM Research and Instructional Improvement at FBCC

The Fort Berthold Community College proposes the Doka Hóg Wahoo (Where do we come from): STEM Research and Instructional Improvement at FBCC. The four goals of the Project are: 1. To provide a baccalaureate STEM degree by developing and offering a B.S. degree in Environmental Science that incorporates culturally relevant environmental concepts and utilizes constructivist methods; 2. To enhance recruitment and retention of students in STEM disciplines including Environmental Science by using proven cohort strategies and teaching methods based in constructivism, provide dual credit opportunities in environmental science for high school students, and provide teacher professional development to promote STEM interest among elementary and high school students; 3. To expand research opportunities for students in STEM degree programs to include environmental internships designed to stimulate students to enter the STEM workforce or enter STEM graduate programs in Environmental Science; 4. To engage STEM students in examining environmental issues impacting the Fort Berthold Indian Reservation and actively participate in community-wide symposiums examining these issues.